Postdoctoral Research Fellowship in Plant Biology

This is a Postdoctoral Research Fellowship in Plant Biology to support Dr. Terzaghi's research and training under the mentorship of Dr. Anthony R. Cashmore. The proposal outlines experiments to study light- regulated gene expression and light signal transduction in photoautotrophic soybean cell cultures. System development will entail: (1) characterizing greening responses to light quality and quantity; (2) studying light/dark regulation of specific transcripts; (3) comparing responses of cells and whole plants; and (4) developing labeling and other technology to study gene expression. Photoreceptors will be identified, and the role of protein phosphorylation in light-signal transduction will be investigated. Dr. Terzaghi's long-term interest is in the area of membrane biogenesis, with particular emphasis on lipid membrane components. Since the greening process involves substantial chloroplast membrane biogenesis and rearrangement, and involves both qualitative and quantitative alterations in chloroplast membrane lipids, the system developed during this training period should be a useful one.